Factors in Decisions of Under-Represented Minorities to Forego Science and Engineering Doctoral Study

This research will attempt to identify the most prevalent factors in decisions
of highly capable students from underrepresented groups to forego study for
science or engineering doctorates. These groups (blacks, Hispanics and Indians)
will soon comprise 30 percent of the population but they receive only five
percent of the S&E doctorates.

The study will obtain information by interviewing 12 randomly selected
subjects. The interview data will be analyzed to identify threads and patterns
regarding the reluctance of the subjects to pursue doctoral study. In addition,
the subjects will be asked to suggest initiatives which would be helpful in
attracting more people like themselves to doctoral study.